Phase, Amplitude, and Polarization of Surface Waves and the Fine-Scale Structure of the Mantle

9418063 Masters This research is to improve the current generation of surface wave dispersion maps by adding amplitude and polarization data to the inversion process. Both amplitude and polarization depend on the lateral gradient of phase velocity and hence constrain the short wavelength structure of the resulting models. Polarization data are also sensitive to anisotropy, and long-wavelength anisotropic structures have already been proposed to explain anomalous surface-wave particle motions. This work will investigate the range of theories and proposed models by applying measurement techniques to coupled-mode synthetic seismograms computed for models with varying degrees of anisotropy and short-wavelength structure. The results of these tests will be used to improve inversions of surface-wave phase, polarization and amplitude data. The resulting observational constraints on the fine-scale and anisotropic structure will then be included in global tomographic inversions for mantle structure. *** ??